Asymptotic enumeration, reinforcement, and effective limit theory

Let F be a multivariate generating function for an array
{a_r r in Z^d} of numbers of interest. In the univariate
(d=1) case broadly applicable methods are known for obtaining
estimates of a_r from the univariate generating function.
In the mutlivariate case, no general method is known for
extracting asymptotics of a_r from F. The PI has been working
on this with various collaborators since 1998, along the following
lines: use the Cauchy integral formula to write a_r as an integral;
use topological and geometric methods to reduce part of this
integral to a residue computation; use saddle point methods
on the remining integral to find an asymptotic expression for a_r.
The research proposed here will extend the class of functions F for
which we are able to compute asymptotics for the coefficients a_r.
A second component of the research is to provide algorithmic
means for doing the computations.

The ultimate goal of this work is to facilitate computation.
Suppose an array of numbers is described by a recursion; for
example, suppose each one is the sum of all the ones immediatley
below and to the left. When the definition is recursive,
computing one of the numbers may require computing each of the
ones before, and there is no evident way to jump in and compute
say the 1,000,000th entry. The research in this proposal concerns
a way to do just that: to compute an entry arbitrarily far out
in the sequence or array without having to compute each
intervening entry. These computations are approximate but they
are fast. Moreover, they can be automated, and in fact a part
of the proposal is to write software that will perform all the
necessary computations.